Mechanism of DNA Polymerase x and Primase

DNA primase catalyzes the synthesis of short oligoribonucleotides that DNA polymerase . (pol .) then elongates. Relatively little is known about how the two enzymes function together. The primary goal of these studies is to understand how primase and pol . function together to initiate synthesis of a new DNA strand. Synthetic oligonucleotides of defined sequence will be used to determine what features in DNA are important for primer synthesis at a given site, and how varying the base composition affects the kinetic parameters. Isotope trapping experiments will be used to examine DNA binding and the nature of a rate limiting step during primer synthesis. The role of primase is to synthesize RNA primers that pol . can then elongate. The structural features of the primase synthesized primers that are important for recognition by pol . will be determined. Primer length, the 5'-triphosphate, 3'-terminal nucleotide and composition (RNA vs DNA) will be examined. Recognition will be examined both by steady-state kinetic techniques and by trapping experiments. Pol .: primase likely interacts with a large number of proteins in vivo. These studies will be extended to examine how auxiliary proteins that have been implicated in DNA replication affect the catalytic properties of pol .: primase.